Partial Support of Travel and Fee for Invited Speakers and Discussion Leaders, Gordon Research Conference on Separation and Purification

A conference will be held to examine recent developments in the area of separation and purification. Attention will be focused on topics of considerable recent growth and potential impact on the science, engineering, and technology of separation and purification. The conference will seek to promote interdisciplinary interaction in the above areas because of the potential benefits of such interaction. The conference will bring together speakers and discussion leaders who are experts in their field. This conference has been very successful in the past in achieving its goals and is expected to contribute further to advances in separation science and technology.